The 1995 National EPSCoR Conference

9553642 Lewis The Annual NSF EPSCoR Conference provides a forum for the exchange of information between the National Science Foundation (NSF), members of the state EPSCoR programs and many other parties with interests in the EPSCoR program. During the Conference, progress and evaluation are discussed as well as opportunities and strategies for the coming year. The State of Wyoming proposes to host the 1995 Conference in Jackson Hole, Wyoming on September 29-29, 1995. The theme of the Conference would be "EPSCoR: Design of a Partnership for Success". The conference will focus on issues that are important for achieving the goals foe EPSCoR. Topics for discussion will include: 1) Assessment and evaluation methods at the state and national levels; 2) Individual state programs and methods for success; 3) Opportunities for collaboration between states and federal agencies to further advance EPSCoR goals; 4) Private sector involvement in EPSCoR programs; and 5) Federal policy changes and their effects on state EPSCoR programs. These objectives will be met through a combination of invited speakers, symposia, poster sessions and displays, and adequate time for discussion. Attendance at the meeting is expected to include, at least the following groups of people: Project Directors and Administrative Assistants, State EPSCoR Committee members, University Administrators, State Officials of Higher Education, EPSCoR scientists, State Legislators, Private Sector members, and representatives from other Federal Agencies and Programs.